REG: A High Speed Video System for Crack Growth Measurement

9500552 Hsia A high speed video motion analysis system will be purchased in order to monitor non-linear crack tip fields in ferroelectric materials in order to better understand the failure mechanisms. This equipment will be used in a novel experiment for measuring the crack velocity at the transition temperature. The dislocation structure at the crack tip will also be studies at the transition temperature. ***